Acquisition of a 400 MHZ NMR Spectrometer for Research and Research Training in Chemistry at Pomona College

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program will assist the Department of Chemistry at Pomona College acquire a 400 MHz NMR Spectrometer. This equipment will enhance research in a number of areas including the following: (1) studies of the conformational behavior of the antibiotic erythromycin and its derivatives, (2) studies of the interactions of ligands and receptors at the molecular level, and (3) studies the experimental and theoretical aspects of NMR isotope effects and the synthesis and conformational analysis of structurally modified natural products. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.